Biodiversity in Africa's Human Landscape: A Workshop Proposal

9320483 Featherman This workshop, organized by the Social Science Research Council, in cooperation with the Smithsonian Institution and the African Academy of Sciences, brings together African and U.S. scientists from a range of disciplines to examine the question: how has human occupancy of African landscapes affected the biodiversity found within those landscapes? Active researchers from the biological sciences, social sciences, and humanities will consider the relevance of this question and the feasibility of pursuing research initiatives to answer it. The specific research interests of the participants include agriculture and drought, forestry, agroforestry, and rangelands management. The African participants come from 7 different countries, representing a broad cross-section of the continent (Nigeria, Uganda, Zimbabwe, Tanzania, Namibia, Cameroon, Kenya). The role of humans in managing and perhaps creating biodiversity has been neglected so far, and Africa, as the place where humans originated, and where the dynamic effects of those interactions are currently highly visible, is the logical place to begin examining the question. The workshop on this novel, important, and timely theme will strengthen collaboration internationally (between US and African scientists), regionally (among scientists in different parts of Africa), and across disciplinary boundaries. ***